EAGER: Supercritical Phase Transition Measured with Neutron Radiography

SSupercritical coolants are promising materials for high-performance cooling systems, especially in data centers. Supercritical coolants undergo a transition from liquid-like to gas-like states that have very different properties. They can absorb heat even though they stay in a single phase on a large scale. This avoids the high pumping power that is usually required in standard liquid-vapor phase change cooling systems. The ease of pumping supercritical coolants and their massive cooling capacities make them a good choice for cooling electronics in demanding applications. This project will use neutrons to take clear pictures of these supercritical transitions at a microscopic level never seen before. The result will be the highest-resolution image of this transition, with the chance to picture a supercritical microscopic “bubble” for the first time. Since future massive data centers will need cooling solutions that can handle powerful, multi-kilowatt chips to unleash AI's full potential, this research will help the U.S. lead the way in AI development, which will lead to faster economic growth, better public health, and a stronger national defense.

The proposed work will advance the science behind the implementation of supercritical fluids in power-generation and thermal management systems. Prior studies used white light or X-rays to image density gradients through the supercritical “phase” transition point, often referred to as the Widom or pseudocritical line. A recent high-speed camera upgrade at the Neutron Radiography Facility (NRF) at Oregon State University will enable the research team to test their primary hypothesis, namely that the “phase” transition line in supercritical fluids is really the maximum spinodal limit departing tangentially from the apex of the coolant’s thermodynamic saturation dome. These spinodal limits are fundamental to the study and understanding of conventional heterogeneous boiling and bubble development. In addition to the attempt to image a supercritical “bubble,” neutron-radiography based Schlieren imaging will be used with controlled and prescribed boundary conditions to measure internal free convection velocity profiles. Free convection is an important aspect as heat transfer coefficients under this condition have been shown to be sufficient to cool multi-kW chips while inducing a buoyancy gradient that could, in turn, drive a passive thermosiphon-style cooling loop. Passive high-performance cooling increases reliability dramatically and should be explored for the potential of not only high-performance data centers but also for forward-deployed military systems where coolants taken directly from the air in tandem with almost completely passive cooling systems would mark a huge and necessary advancement in system reliability. Higher resolution of this powerful “phase” transition with naturally-occurring coolants enabled by the proposed approach will have far reaching applications and broader impacts to America’s position as an economic and thought leader in AI, healthcare, and national defense.